eBird Enterprise: Maintaining the Cyberinfrastructure to Support the Collection, Storage, Archive, Analysis, and Access to a Global Biodiversity Data Resource

Cornell University is awarded a grant to support the cyberinfrastructure to sustain the continued exponential growth of eBird, an online data resource for global bird biodiversity. With its launch in 2002, eBird opened a new era of real-time data gathering by birders, and by 2020, the project has become the world’s largest biodiversity-related citizen science project. More than 500,000 contributors have submitted almost 750 million bird observations of more than 10,000 bird species globally. These data provide comprehensive, high-resolution information about the spatial and temporal distribution of bird populations across a species full range, throughout the year. Modeling eBird data has generated North American bird status and trends results that provide an unparalleled window into a species’ full annual cycle providing a valuable source of population-level distributional data for basic biological research and conservation applications. All eBird data is openly available and has been downloaded more than 130,000 times by students, educators, government staff, and researchers, resulting in more than 300 peer-reviewed scientific papers. True to its beginnings, eBird is still grounded in serving as an essential tool for birding and more than 8 million people access eBird every year from every country to explore eBird data through interactive exploration, visualization and analysis tools.

Much of the research in basic and applied ecology is founded in descriptions of distribution and abundance of species. Long-term, well-organized data covering broad spatial scales are necessary for documenting change, generating hypotheses for their causes, and ultimately understanding how these changes relate to overall ecosystem health and function. While collecting a single-species occurrence datum is a well-understood process, the coordinated collection, curation, access, and storage of these data is no small task. Appropriately structured, openly available, and maintained in a consistent long-term cyberinfrastructure species occurrence, as well as other large-scale environmental datasets have become essential for studying biodiversity. The goal of eBird’s data management infrastructure is to provide a: (1) a single, consistently gathered and curated data source that is openly available and widely in use, (2) represents a substantial proportion of all available data on distribution of all bird species globally, and (3) provides these data in a suite of value-added products that lower the threshold of data management needed to use these data. For more information about eBird, visit its website at http://ebird.org.